Transport Phenomena Associated with Gas-Liquid Dispersions in Tower Fermentors for Plant and Animal Cell Culture Applications

Narrative: Airlift reactors incorporating mammalian and plant cells have a high potential for commercial utilization to synthesize a variety of important bioproducts (proteins, etc.). Some advantages of the airlift concept include low shear rates, relatively good mixing, and a decreased risk of contamination. The single most important aspect of air lift reactors is that they provide a gentle environment for the culture and therefore, preserve the integrity of fragile cells, which in turn reduces the release of undesirables into the broth. The specific objective of the research will be to obtain fundamental knowledge about the hydrodynamic forces and to characterize turbulence in multiphase flow. This information will be used to examine effects on fragile cultures, design supports for immobilized cultures, and provide scale-up information for airlift fermentors.